REU Site: Modern Optics and Optical Materials

The University of Arkansas continues operating a Research Experiences for Undergraduates (REU) Site. Ten undergraduate students are recruited nationwide every year for a ten-week summer research experience, with a recruitment focus on undergraduates from Historically Black Colleges and Universities in the region. The theme of the REU Site is Modern Optics and Optical Materials. Undergraduate students participate in research projects addressing synthesis, characterization and modeling of glasses, semiconductors, and other optical and laser materials. In addition to participating in individual research projects, REU students attend lab tours and professional development seminars.

This REU Site is supported by the Department of Defense in partnership with the NSF REU program.